Geometry and Topology of Orbifolds

DMS-4724
Ernesto Lupercio

This proposal consists of a number of research projects on the topic
of cohomology theories for orbifolds and related subjects. The suggested
methods combine algebraic topology with techniques
coming from stack theory in algebraic geometry and tools arising
in symplectic geometry. It proposes the use of the theory of
groupoids as a unifying tool in the solution these questions; a
methodology that has proved successful before in our study of
orbifolds. The following is a brief summary of some aspects of the
project. The first project is program whose objective is
the study of the cohomological invariants that can be naturally
obtained from several natural spaces associated to an orbifold. A
second project consist of a study the orbifold elliptic genus,
its modularity and rigidity properties from the homotopy
theory point of view. The third project describes a program to
define and study Orbifold Deligne cohomologies and their relation
to gerbes defined over the orbifold. The fourth is a project to study
the relation between the Hodge-Deligne numbers of an orbifold
resolution of singularities of an orbifold and the original orbifold.

Orbifolds are geometric spaces in which it is very important to keep track
of the local symmetries of the particular situation. So in general the
points
of an orbifold are classified by the amount of local symmetry. In ordinary
spaces all points are equal, while in an orbifold points carry different
weights corresponding to the amount of local symmetry. Orbifolds have been
used in the study of structural crystallography allowing for a convenient
book-keeping device by reducing the redundant information in the space
group diagrams of the crystallographic groups. Orbifolds have also become
extremely important in the field of theoretical physics referred to as
Superstring
theory. In String Theory, the multitude of particle types of classical
high
energy physics is replaced by a single fundamental building block, a
`string'.
As the string moves through time it traces out a tube or a sheet,
according
to whether it is closed or open. Moreover, the string can vibrate, and
different vibrational modes of the string represent the different particle
types, since different modes are seen as different masses or spins. In an
attempt to make these theories describe the physical universe, physicists
have
been motivated to let the string move on an orbifold space. In these cases
the
theory acquires properties that are very desirable for it to model
reality.
The work proposed in this project involves the development of rigorous
mathematical methods to study the geometry of these spaces.